Creating an Undergraduate Electro-optics Laboratory at Northrop University.

This project is to set up a new electro-optics laboratory, a field that is emerging as one of the critical areas of telecommunications. Instrumentation such as monochrometers, low power lasers, pyroelectric radiometers and fiber optics communications links will be integrated into an undergraduate laboratory. New experiments are to be developed which will strengthen undergraduate education in the fields of lasers, fiber optics communications, electro-optical instruments and holography.